Acquisition of a High Performance Liquid Chromatography - Mass Spectrometry (HPLC - MS) System

With this award from the Chemistry Research Instrumentation and Facilities: Departmental Multiuser Instrument Acquisition (CRIF:MU) Program, the Department of Chemistry at Rutgers University in Camden will acquire a high performance liquid chromatography - mass spectrometry (HPLC-MS) system. Research activities include synthesis of novel fluorinated compounds; studies on thyroid hormone metabolite analysis; investigations on the function of modified nucleosides and specificity in protein-protein interactions; and studies involving conducting and electroactive polymers.

Liquid chromatography with mass spectrometric detection (LC/MS) is an extremely powerful technique used for the separation and analysis of complex mixtures. This instrument will substantially strengthen scientific research at this primarily undergraduate institution, and these studies will have a solid impact in the areas of polymer chemistry and biochemistry.